Leech Lake Tribal College Technology Planning Project

The proposed project will establish a SMET task force to assess the current state of
the math/science program and its facilities at Leech Lake Tribal College in order to
identify current strengths and weaknesses. The project will also involve conducting
surveys to determine student enrollment, completion, interest in, and satisfaction of
students with relationship to SMET programs. In addition, the project will serve to
identify issues LLTC students face when they transfer to four-year institutions, and
to identify programmatic trends and opportunities to which the college should respond.

The project will identify: State and federal funding opportunities for SMET programs;
Bridges-type programs that are available to faculty and students; regional research
programs that could involve faculty and students; online SMET-content courses that
are available to faculty and students.

As a result of the above, a set of goals will be identified and a SMET development plan
will be drafted to target identified department needs, partnership opportunities with
schools, regional, tribal and other baccalaureate and graduate-degree institutions,
private sector, and federal agencies.